Pathogenesis in a Widespread, Estuarine Copepod: Etiology and Demographic Effects

Factors influencing the dynamics of aquatic populations have been studied for decades. Understandably, physical and biological factors that are best quantified are those that have received the most attention. A factor that has been severely neglected by investigators is disease. It is inarguable that disease may affect organismic performance and reduce ecological potential. In this research, Dr. Lonsdale will examine an affliction at the level of its effects on individual organisms and the demography of populations. Her research will focus on Scottolana canadensis, a widespread, estuarine copepod. An affliction in S. canadensis that can render females unable to reproduce. Dr. Lonsdale's experience with the ecology and culture of this copepod will permit a variety of experiments designed to determine the cause of the affliction and its potential for affecting the abundance of this species. The methodology includes histological examinations of healthy and afflicted copepods with light and electron microscopy and life-table experiments using anti-biotics to help characterize the agent responsible for pathogenesis. To test the hypothesis that the affliction negatively impact copepod growth, Dr. Lonsdale will conduct bi-weekly sampling of S. canadensis from environmentally "stressed" and "pristine" estuaries on Long Island.